Velocity Modulated Spectroscopy of Molecular Ions in Alkali Vapor Plasmas

The principal investigator will use velocity modulation spectroscopy to measure critical potential energy parameters in a class of molecular ions that provide an important test bench for related field of molecular dynamics.